Computational and Statistical Methods for Analysis of Neuroimaging Datasets

9418982 Cohen It is currently possible to acquire images of the brain so as to reveal the regions that are active while people are performing particular cognitive tasks. However, massive amounts of data (many successive images ) are produced from these neuroimaging studies, and it is not clear how to efficiently analyze all of the functional information that the data contain. With this award, a research group comprised of a psychologist, statistician, computer scientist and a radiologist (headed by Dr. Jonathan Cohen) will be developing new ways to analyze large sets of neuroimages. They will improve techniques for image reconstruction, expand available statistical tools for image processing, and implement these improvements on a supercomputer. This work should greatly advance the non-invasive analysis of brain function.